RAPID: Understanding and Preventing Scam on Craigslist

This research develops a data set of postings on Craigslist during the mid-November to late December 2010 time period. The purpose of the data set is to support subsequent analysis for evidence of "scams" -- fraudulent postings. The dataset will provide a basis for testing algorithms for automatic scam identification. Such scams are expected to be most common during the high volume period targeted for collection.